SGER: SCIF: Securing the Computing and Information Future: Principled Foundations and New Cryptographic Abstractions

The research plan of this project is: (1) develop new principled foundations for information security, including new cryptographic primitives and new abstractions, based on lattice theory, (2) explore the implications of this approach to information security requirements as may emerge novel applications, including synthetic biology, communication-efficient networks, and nano-electronic computer architectures, and (3) develop a vision of a bridge from the new foundations to the new applications. Many anticipated and emerging technologies pose novel information security requirements that are not necessarily well supported by existing information security infrastructure and cryptographic primitives. This research will investigate these issues from this new perspective on computing and information security. Overall, the plan takes a clean-slate approach to computationally re-conceptualizing the basis of information security in forward-looking domains.